Hierarchical approximations to optimal control

Proposal Number: 0702221

Proposal Title: Hierarchical approximations to optimal control

PI Name: Todorov, Emanuel

PI Institution: University of California-San Diego

The objective of this research is develop new algorithms for
approximately-optimal control of complex dynamical systems. The approach
combines inspiration from neuroscience with mathematical advances in control
theory. The algorithms have a hierarchical structure reminiscent of the way
the brain generates complex behavior. The lower level of the hierarchy
augments the body and makes it easier to control. The higher level monitors
progress and steers the system towards achievement of the common task. In
this way the complexities due to the body are separated from those due to
the task.

Intellectual merit
The project includes two complementary classes of algorithms. The first
class represents a significant advance in the theory of stochastic optimal
control. A general family of problems are identified where the fundamental
equations characterizing the optimal solution turn out to be linear, even
though the controlled system is nonlinear. The second class of algorithms
represents a practical framework for attacking high-dimensional nonlinear
problems, particularly those that arise in biomechanics.

Broader impacts
The proposed theoretical developments represent foundational work which is
likely to have a lasting impact. The proposed numerical algorithms have the
potential to extend the range of practically-solvable optimal control
problems. Optimal control is of interest in many fields of science and
engineering, including the recovery of motor function via brain-machine
interfaces. Educational activities include mentoring of the graduate
students funded by this proposal, as well as design and teaching of both
graduate and undergraduate classes at the interface of Neuroscience and
Engineering.